Southwestern PA Rural Systemic Initiative

This project would conduct Development-phase activities such as the regional self-study, to collect and analyze data aligned with the Systemic Reform Drivers. The data and the associated discussions, resulting in stronger partnerships between stakeholders, will be used to formulate the strategies for the Implementation phase. These strategies will then be examined for their effectiveness in the rural context. The primary expected result of the Development phase would be an Implementation strategy that will be submitted to the RSI program for funding. The conduct of the project will be under the guidance of a Steering Committee, composed of individuals who have been working on ASSET or one of its related activities.